U.S.-France Cooperative Research: Theoretical Studies of Spin Polarized Quantum Systems

This award will support collaborative research between Prof. William J. Mullin of the University of Massachusetts, Amherst, and Dr. Franck Laloe of the Ecole Normale Superieure, Paris, in the area of quantum physics of polarized systems. The goal of this research is to increase our understanding of fundamental processes which are affected by strong polarization of electron spins. Materials which exhibit such polarization, and hence whose properties are not completely described by classical physics, include gaseous hydrogen and certain isotopes of liquid and gaseous helium. The effects of spin polarization on atom-atom interactions in these systems can be large if the polarizations are opposing in the interacting atoms. These actions can lead to large effects on mean free paths, and hence on the measurable properties of pressure, thermal conductivity, viscosity. This theoretical study will involve investigation of possible extensions of the classical kinetic equation (which describes atomic motions in the system) to the quantum regime. The study will also examine how the effects of strong polarizations can be incorporated into this quantum-capable equation in a solvable manner. In addition, the possibility of seeking new experimental observations related to quantum effects in spin-polarized systems will also be explored. The U.S. investigator has already performed considerable research on solutions of the kinetic equation, and the French collaborator's previous experience with derivation of the collision integral--the term which actually describes the atomic interactions--for the kinetic equation is complementary. The U.S. and French investigators will therefore benefit from joint efforts on this problem. The kinetic equation will be solved for measurable transport coefficients, such as heat conductivity and viscosity, if possible, and alternative modes of measurement of the transport coefficients of polarized helium gas isotopes will also be examined. This work could have important benefits in the areas of thermodynamics and cooling systems, superfluidity, and superconductivity.